U.S.-Argentina Program: Latin American Congress on Statistics and Probability; Cordoba, Argentina, September 21-25, 1998

9804750 Carriquiry This Americas Program award will fund a Latin American workshop on "Probability and Mathematical Statistics", to be held in Cordoba,Argentina, September 21-25, 1998, in conjunction with the Iberoamerican Congress of Statistics. Organizers are Drs. Alicia Carriquiry, Iowa State University, and Philip Protter, Purdue University, in collaboration with Dr. Victor Yohai, Universidad de Buenos Aires. The workshop will focus on the importance of statistical science and probability as fundamental components of scientific and social inquiry. The main objectives will be to discuss new developments and identify common research areas for international and Latin American researchers In order to achieve these objectives participants will address topics in statistics and probability with wide application in other areas of research. Coinciding with the improvement of economic conditions in Latin America during the past ten or fifteen years, the basic sciences have experienced a markedly improvement in quantity and quality in the region. Probability and Mathematical Statistics are at the forefront of this forward movement, mostly due to the regional and international collaborations resulting from challenging problems in areas such as environmental statistics, econometrics and social statistics. While not disregarding the more theoretical aspects of probability and statistics, the emphasis of this activity is on the application of the mathematical sciences to other areas of scientific and social inquiry, highlighting methodology and interdisciplinary collaboration. ***